The Design, Synthesis and Development of Self-Assembling Conducting Oligomers and Polymers

This award is made by the Office of Special Projects in the Chemistry Division under the Materials Synthesis and Processing Initiative. Structurally homogeneous poly(3-alkylthiophenes) and poly(3-alkylpyrroles) will be prepared using principles of self-assembly through inter- and intramolecular hydrogen bonding. Structural homogeneity will limit defects in the polymers and enhance electrical conductivity. Oligomers will also be made in order to provide information about the effect of molecular structure on electronic and photonic properties and the likely environments needed for self-assembly in the related polymers. Molecular mechanics and band structure calculations will be used as a guide to polymer design. %%% Synthesis of well-defined, homogeneously structured conducting polymers will provide materials with enhanced optical and electronic properties as well as provide low-defect materials which would address fundamental transport mechanisms in conducting polymers.